Positron Scattering by Atoms and Molecules

Previous work on measurements of total and differential cross sections for positron scattering on atoms will be extended. In addition there will be three directions for the research, namely: 1. Measurements of excitation cross sections for alkali atoms. 2. A measurement of the positronium formation cross section. 3. A search for resonances in positron-atom collisions which have been predicted theoretically, but have not yet been observed.